Workshop on US-Hungarian Research Collaboration to Address IT Challenges for 21st Century Society

This collaborative grant workshop lays a foundation for building joint US-Hungarian research projects. The proposed set of activities is an outgrowth of ongoing discussions between NSF program managers and Hungarian Research Scientists visiting NSF in the Fall of 2002. These discussions culminated in Hungarian researchers attending and participating in the annual meeting of digital government PI's and their government agency partners in May 2003 (dgo2003). Two US researchers who organized an International Digital Government Research Collaborations panel at dgo2003, in discussion with the Hungarian participants, accepted an invitation by the Hungarians to organize a small group of US researchers to meet in Hungary later in the year. This is a natural step that enables collaborations within the following domains:

1. E-government research
2. Information society technologies
3. Information society studies, social informatics, research on information issues